A Genetic Stock Center For Peromyscus

The deer mouse (Peronysucs maniculatus) and congeneric species are the most common native North American mammals. They range from Alaska to Central America and occur in many natural habitats. Because of their abundance, these mice constitute a major component of nearctic terrestrial ecosystems. Laboratory stocks of both wild-type and genetically variant Peromyscus are used for investigations in which laboratory-based studies can be interfaced with those of natural populations. The Peronysucs Genetic Stock Center was established in 1985 to provide a reliable source of these animals and related materials to the national scientific and educational communities. The Center currently keeps seven species of Peromyscus and more than 35 distinctive mutant and other genetically defined stocks primarily of the deer mouse. The Stock Center also supplies biological materials form Peronmyscus including fresh, frozen and preserved tissues, and molecular probes and libraries. The Stock Center functions as a clearing house for information regarding this genus by sponsoring an internet database, maintaining a reference collection of reprints, standardizing the genetic nomenclature for the genus and publishing a semi-annual Peronmyscus Newsletter. These resources are widely used in the U.S. and elsewhere. Continued partial support by NSF for this project is requested.